Differential Equations in Geometry

Abstract

Award: DMS-0306600
Principal Investigator: Shing-Tung Yau

We propose to bring together ideas from the subject of nonlinear
partial differential equations, differential geometry and
algebraic geometry to study questions raised in general
relativity and string theory. Not only many questions in
theoretical physics should be answered, but also a coherent
picture in the previous unrelated subjects in mathematics should
be constructed. The motivation to understand black hole
formation has already led active research in minimal surfaces,
inverse mean flow and various global nonlinear differential
equations. They should also guide numerical relativities to do
precise calculations. Our recent work on quasilocal energy
should provide a way to understand the structure of Einstein
equation when the gravity field is strong. The Einstein equation
is much related to the Ricci flow which was pioneered by
Hamilton. Some new ideas were obtained by Perelman by looking at
the entropy that come from physics.

By deeper understanding the underlining equation, we should
understand topology of three dimensional manifolds. The desire
to understand mirror symmetrics and calculation of instantons has
led to important discovery in algebraic geometry. We expect that
analytic aspects of mirror symmetry will bring geometers to study
special Lagrangian surfaces in Calabi-Yau manifolds. It will be
an important contribution to both differential geometry and
mathematical physics. Both existence theorems for special
Lagrangian and the detail structure of family of such manifolds
will head to deeper understanding of geometric structures on
manifolds. The ultimate grand unification of mathematics and
physic led by geometry is exciting.